Quantitative Analysis of Fluid Inclusions by Laser Raman Microprobe Spectroscopy

This represents a coninuation of research previously supported by NSF grant EAR 84-08004 involving continued development and analytical applications of the Laser Raman Microprobe, with emphasis on in-situ analysis of microscopic fluid inclusions in mineral samples. Because the quantitative imterpretation of Raman spectra of mixed-volatile fluid inclusions requires accurately known Raman scattering efficiencies for each species at appropriate densities, the project will concentrate on the determination of these parameters for mixtures of volatiles of known composition at varied pressures. The results of the project will permit quantitative analysis of fluid inclusions containing CO, CO2, CH4, N2, H2, O2, H2S, and SO2 at various internal pressures. In addition, a series of artificially produced C-O-H fluid inclusions containing CH4-CO2 clathrate hydrates will be studied at different temperatures. These studies will contribute to our understanding of phase behavior in the C-O-H system and to our understanding of the conditions of formation of minerals containing such inclusions.